Hunger and Satiety Produced by Simple Sugar

Most current theories of hunger predict that glucose should be satiating. None would predict that glucose or other simple sugars could act as hunger or appetite stimulants, yet the hunger- and appetite-producing effects of simple sugars have been demonstrated experimentally. For example, Dr. Geiselman has shown that, when glucose was slowly infused into the duodenum, rabbits decreased their subsequent food intake, as would be expected. However, when glucose was rapidly infused into the duodenum, the rabbits nearly doubled their food intake. Dr. Geiselman's research is attempting to determine why glucose sometimes is satiating and at other times acts to produce hunger. She will carry out experiments designed to determine the hormonal and metabolic mechanisms that produce satiety in response to slow infusions of glucose into the duodenum and hunger in response to fast infusions of glucose into the duodenum. Dr. Geiselman's research will provide insight into the basic physiological mechanisms that control food intake and, more specifically, that relate sugar intake to hunger motivation. Dr. Geiselman hypothesizes: (1) that glucose is satiating when it is followed by a moderate rise in insulin level that is insufficient to produce hypoglycemia, (2) that glucose stimulates further hunger when it is followed by a great elevation in insulin level that is sufficient to produce hypoglycemia, and (3) that the hunger-stimulating effect of glucose occurs when glucose is readily converted to fat.